Spectam XIX Conference and Student Paper Competition

9725863 Stevens The grant facilitates a student paper competition at the 19th Southeastern Conference on Theoretical and Applied Mechanics at Florida Atlantic University on May 3-5, 1998. The project stimulates student professional interest in mechanics, materials, and related fields, encourages participation of women and minority students in these technical areas, provides a forum for students to interact with leading professionals from around the world, and provides students s direct experience with the professional presentation and publication process. ***